Algebraic Cycles, K-Theory, and Representation Theory

DMS-0300525
Eric M. Friedlander

Friedlander proposes to investigate topics in algebra, geometry,
and topology. Each of these topics entail a synthesis of techniques
and results from various mathematical fields with the goal of progress
toward solutions of fundamental problems, and each has seen progress
achieved by Friedlander and his collaborators. Firstly, Friedlander
proposes to investigate algebraic K-theory and algebraic cycles on
algebraic varieties, with the expectation that his investigation will
contribute both specific computations and general properties of these
fundamental invariants. Friedlander will seek to produce topological
constructions associated to objects arising in algebraic geometry
which closely reflect subtle aspects of algebraic cycles and algebraic
K-theory. These constructions, many planned in conjunction with Mark
Walker, are envisioned to involve a blend of techniques from stable
homotopy theory and recent techniques developed by Voevodsky for motivic
cohomology. In particular, Friedlander plans to investigate further the
semi-topological K-theory of varieties and its connections with algebraic
and topological K-theory. The second topic involves the introduction
of new spaces determined by the representation theory of a finite group
scheme which provide a new perspective on cohomological support varieties.
The goal of this research, in part to be achieved in collaboration with
Julia Pevtsova, is to produce finer invariants in the general context of
finite group schemes which are accessible to computations and which extend
our understanding of (modular) representations. Finally, in joint work
with Vincent Franjou, Friedlander proposes to study the cohomology of
polynomial bifunctors with the aim of improving earlier computations by
himself and others to cases more closely related to questions in K-theory.

Mathematics continues to reveal beautiful relationships which are both
useful and surprising. This project involves the study of shapes
(topology) which arise as the solutions of polynomial equations.
Such a study uses geometric insights and algebraic manipulations,
augmented by constructions and computations of many mathematicians over
the centuries. Some of the questions considered still seem dauntingly
difficult, but partial progress towards their solutions will lead to
advances in different branches of mathematics and mathematical physics.
A second aspect of this project is the study of formal algebraic objects
which arise as symmetries of familiar structures. Once again, geometry
is blended with algebra to provide motivation for questions to be asked
as well as to suggest methods of solution. A third aspect consists of
efforts to maintain the strength of the national effort in mathematics by
mentoring graduate students and junior faculty, by organizing mathematical
meetings, by editorial efforts for journals and special volumes, and
by participation in the on-going discussion of policy issues for the
American Mathematical Society.